A Study of Subtidal Motions in Slope Water of the Middle Atlantic Bight

A three-year (1983-1986) record of temperature, conductivity and water velocity has been obtained from seventeen moorings over the Middle Atlantic Bight slope and outer shelf. Subtidal motions are vigorous, topographic Rossby waves are absent, and strong velocity oscillations, with a 10-day period have been discovered, which were previously unknown. Relatively small eddies have also been found to contribute to velocity variance. These data will be combined with satellite sea surface temperature imagery to investigate the 10-day oscillations, as well as other features near the inshore edge of the Gulf Stream.